Protein Folding Studied by Pressure Perturbation

9600523 Royer The overall goal of the proposed research is to provide fundamental, new knowledge about the physical mechanisms by which small globular proteins of particular sequence adopt a particular three-dimensional structure characterized by a particular fold, stability and function. The proposed research will take advantage of the slow folding kinetics and depressed freezing point of water which are unique to the pressure perturbation approach. High hydrostatic pressure will be combined with a variety of physical chemical measurements (fluorescence, infrared spectroscopy and small angle x-ray scattering) on two model proteins, staphyloccocal nuclease and apomyoglobin, to address the following issues fundamental to protein folding. i.) The nature of the transition state in protein folding ii.) Molten globule intermediates of protein folding iii.) Characteristics of cold denaturation. %%% These high pressure studies using a combination of spectroscopic techniques will provide unique and fundamental information about protein folding unavailable from alternative perturbation approaches. This is because the effect of pressure is to slow down the folding and unfolding process by several orders of magnitude. Given such slow kinetics, measurements of structural properties can be made on the timescale of minutes rather than nano to microseconds, providing kinetic profiles using techniques which are extremely difficult to apply to the much shorter timescales that characterize folding at atmospheric pressure. This approach will yield structural information about the transition state and kinetic information about the multiple states in the folding pathway of apomyoglobin. A second unique advantage of high pressure stems from the unusual phase diagram of water, which remains liquid to -20 C at 2kbar of pressure, allowing for the direct observation of cold denaturation at high pressure using all of the above mentioned physical techniques. The phenomenon of co ld denaturation, the kinetics and characteristics of molten globule intermediates and the nature of the rate limiting step in folding remain among the least well characterized aspects of protein folding and stability. ***